Improvement of an Undergraduate Electrical Machines Laboratory.

This project will improve the electrical machines laboratory by adding six well equipped student experimental stations. The stations are to be equipped with "take-apart" machines which will allow the student to understand the physical construction of machines and its relation to the physical and mathematical principles. Included in the stations will be most of the common types of machines and transformers. The related experiments will expose the students to both the static and dynamic behavior of electrical machines, and the deviations of dynamic behavior from theoretical performance based on simplifying assumptions.